Second International Congress of the Society of Nematologists; Endhoven, The Netherlands; August 7-11, 1990

This proposal seeks support to bring together several groups of scientists at the International Congress of Nematologists in Endhoven, The Netherlands. Scientists from several disciplines that do not regularly interact (cellular and molecular biologists, ecologists, population biologist, systematists) will be chosen to participate to facilitate the exchange of ideas. Participants will be chosen by panelists screening applications submitted to the Society of Nematologists.